Research Experiences for Undergraduates in Particulate Systems Engineering, Summer 1993

Research in Particulate Systems Engineering is crucial to advances in combustion, atmospheric and environmental sciences, indoor air quality, nuclear reactor safety, and materials manufacturing. The purpose of this program is to provide research experiences for 12 undergraduate students each year in this area at the University of Missouri-Columbia (UMC) during the summers of 1993, 1994, and 1995. At least half of the students each year will be selected from institutions other than UMC, with several recruited from Stephen's College (a women's college), Lincoln University (HBCU), and other undergraduate schools in the state. Each student will undertake a specific research project, and a faculty advisor will work with the student to develop his/her research skills. An essential element of the program will be its emphasis on professional development of the students. The purpose is to infuse bright undergraduate students with an enthusiasm towards research careers, including graduate level education.